Student and Young Investigator Support for the 10th International Conference on Paleoceanography

This award will support the participation of ~40 students and young scientists in the 10th International Conference on Paleoceanography (ICP), which will be held in late summer 2010 at the Scripps Institute of Oceanography in LaJolla, CA. The ICP meeting is held once every three years, and is the largest and longest-standing meeting dedicated to the field of Paleoceanography. This will be the first time a US institution has hosted the conference in over 20 years. The ICP meeting offers an important means for intellectual and social networking, particularly for students and young scientists. Participant support will be based on applicants’ statements of purpose and will target under-represented groups. This award will also support a professional development forum at the meeting, and advertising of the meeting in relevant trade journals.